U.S.-Poland Joint Fund Research on New Electrophoretic Detection and Capillary Modification Techniques

The primary objective of this US-Poland cooperative research project between Dr. Joseph Pesek of San Jose State University and Dr. Andrzej Stolyhwo of the Technical University of Gdansk is to further the development of the analytical capabilities of high performance capillary electrophoresis (HPCE). Furthering the development of HPCE should enable analysis of complex mixtures of biologically important compounds. The researchers intend to apply a parallel effort in two aspects of HPCE technology: detector design and chemical modification of the separation capillary. Their efforts to modify the laser light scattering detector (LLSD) to accommodate the conditions of the HPCE method could provide for universal detection of HPCE. Because it is thought that some modified capillaries will be based on direct silicon-carbon bonds at the surface, the researchers plan to use several reaction schemes. The more stable modified capillaries will be used for deactivation when electrophoretic mobility is the prime separation mechanism and to provide a partitioning medium when electrophoretic mobility cannot be used to achieve separation. The results of this research should produce a high performance capillary electrophoresis technique with the versatility and reliability of gas chromatography. Funds for this project to further high performance capillary electrophoresis development are awarded through the Maria Sklodowska-Curie Joint Fund II, Warsaw, in accordance with established guidelines.